Developing a High-Resolution Stratigraphic Framework for andPaleoenvironmental Interpretations of Arctic Ocean SedimentsUsing Paleomagnetic and Rock-Magnetic Methods

Biostratigraphy and oxygen-isotope stratigraphy are of more limit use for dating Arctic Ocean sediments from other regions because of the relative scarcity of suitable fossil material. The existing chronostratigraphic framework for these sediments is based primarily on a combination of lithostratigraphy and magnetostratigraphy and is of limited resolution. This award supports the construction of a significantly higher-resolution chronostratigraphic framework for abyssal Arctic Ocean sediments using an approach that is based primarily on rock-magnetic and polarity stratigraphy. Data indicate that paleoenvironmental changes in the Milankovitch frequency band are recorded by rock-magnetic parameters. Therefore, a combination of rock-magnetic, paleomagnetic, and other studies (i.e., lithostratigraphy, biostratigraphy, and isotope stratigraphy) can provide both a high-resolution stratigraphic framework and a data base for paleoenvironmental interferences. Preliminary results from several sediment cores from different regions of the Arctic indicate that this approach is feasible. Study material includes a total of 15 sediment cores collected from the T-3 ice island (4 cores), from ice station Alpha by the Coordinated Eastern Arctic Experiment (CESAR) expedition (3 cores), from the Eurasian Basin Ark IV expedition (4 cores), and the Northwind Ridge (4 cores).